Predator Cognition and Prey Evolution: The Virtual Ecology Approach

Animal Behavior Program

Non-technical Abstract

Title: Predator cognition and prey evolution: The virtual ecology approach

PI: Bond, Alan

Proposal #: 9974669

The evolution of color patterns in animals has been studied for over a century, but many basic questions are still poorly understood. Why do camouflaged species often occur in multiple, distinctive forms? Why are distasteful animals usually brightly colored? There is little direct evidence bearing on these issues, because it is difficult to conduct evolutionary experiments in the laboratory. The proposed research will explore the evolution of color patterns in prey species using blue jays trained to search computer displays for the presence of digital "moths." The moths exist in an artificial population maintained in computer memory, a "virtual ecology," with a genetic system derived from the genetics of real moths. They breed and evolve through successive generations based on whether jays detect them when they are displayed on screen. Changes in their color patterns over time mimic many of the evolved features of color patterns in real insects.

Predator-prey systems are important both biologically and practically. The proposed research will advance understanding of the complex dynamics involved in predator-prey interactions over evolutionary time. It will also test the validity of virtual ecology for studying evolutionary dynamics, potentially adding a powerful new technique to the scientific study of organic evolution.